U.S.-Colombia Planning Visit for Cooperative Coastal Geological Research

9728893 Morton This Americas Program award will fund a short-term visit to Medellin, Colombia, by Dr. Robert Morton, University of Texas, Austin, to plan an international cooperative research project in collaboration with Dr. Ivan D. Correa, Universidad EAFIT, Medellin, involving coastal geologic research focused on the San Juan delta area, Pacific coast of Colombia. The Pacific coast of Colombia is a region of significant geological interest because active tectonic forces coupled with extremely high rainfall, a moderately high tide range, and moderate wave energy have constructed a coastal plain with diverse depositional environments and associated ecosystems. An analysis at geological and historical time scales is necessary to understand its evolution of the coast and to predict future changes. This visit is intended to specifically address research responsibilities of the collaborators, such as sediment budget analysis and tectonic influences, as well as tentative schedules for completion of phases of the project, and the level of involvement by undergraduate and graduate students of the US and Colombia. After traveling to the field area to examine river-bank exposures, observing wave and tidal processes and beach morphologies, they will return to Medellin to discuss final plans for collaboration, assignment of responsibilities and schedule for proposal preparation. ***